SHF: Small: Using Coding Theory to Optimize the Representation of Information in Computer Architecture

Computer systems process and store information, including
instructions, inputs, and outputs. Computers represent, or "encode",
this information with bits -- zeros and ones -- such that a given
sequence of bits can describe a number, an instruction, a character to
print to the monitor, etc. The choice of bit patterns used to encode
different types of information impacts the performance, reliability,
and energy-efficiency of a computer. This project -- which is an
interdisciplinary collaboration between a computer systems architect
and an expert in information coding -- will develop new information
representations that improve performance, reliability, and
energy-efficiency. This project will have both technical impact on
computer system design and information coding, and it will impact
society through its training of students (both graduate and
undergraduate) and an outreach program that brings under-represented
minorities to Duke for summer research experiences.

This project will make technical advances in four main avenues.
First, the project will develop new representations for the
information that is stored in write-limited storage media like Flash,
with the goal of extending its lifetime. A key coding technology in
this research thrust is coset coding, in which the system has multiple
choices for which codeword to write to the storage and can choose the
option that incurs the least wear. Second, the project will develop
new codes, based on existing locally repairable codes, for writing to
all types of storage that can suffer permanent failures. These codes
can enable efficient, local repair of failures by minimizing the
number of storage locations that must be accessed to perform the
repair. Third, the project will develop new representations of
instructions to improve performance and energy-efficiency. In
particular, the project will develop new encodings of instructions for
GPUs that enable useful work to be done even in the presence of branch
divergence. Fourth, the project will develop and apply network coding
techniques to improve the performance and reliability of communication
between processor cores.